Travel: Student Travel Grant for 2023 Formal Methods in Computer-Aided Design (FMCAD)

Formal Methods in Computer Aided Design (FMCAD) 2023 is the twenty-third in a series of conferences on the theory and applications of formal methods in hardware and system verification. It provides a leading forum to researchers in academia and industry for presenting and discussing ground-breaking methods, technologies, theoretical results, and tools for reasoning formally about computing systems. This grant will help support conference travel for up to 15 students enrolled in US institutions to attend FMCAD in Ames, Iowa, USA. The students will get the opportunity to present at the Student Forum, which is a platform for graduate students at any career stage to introduce their research to the wider formal methods research community, and solicit feedback.

The field of formal methods is being rapidly deployed in a variety of areas both in academic research, as well as in industrial systems. Thus the broader significance and importance include fostering the next generation of researchers in this research area, as well as providing international experiences to build a globally-aware workforce. In particular, students will have the opportunity to present at the Student Forum, learn state-of-the-art methodologies, be exposed to novel techniques, and interact with senior researchers in their areas of expertise. The organizers will give priority to students from under-represented groups and from small universities without a formal methods program.